Connection to NSFNET

9521946 Hallas Edison Community College requests support from NSF for connection of their Charlotte County Campus network to SURAnet. SURAnet, a midlevel network will provide operations management and information services and it will give the Edison's Charlote County Campus a 128KB connection to the Internet connection, a collection of interoperable networks that connect most research and education organizations in the United States. The College needs the Internet connection to be able to access information resources throughtout the state, the nation and the world. The connection will benefit the faculty, staff students of Edison Commmunity College Charlotte County campus.